Coarse Topology of Metric Spaces

DMS-0305152
Alexander Dranishnikov

The project is dedicated to the asymptotic (coarse) topology.
There is a macro-micro analogy which helps to explore and navigate
the relatively new world of coarse topology.
The P.I. is planning to work in the asymptotic counterparts of the following
classic topics of topology: Dimension Theory, Cohomology Theory, Theory
of Embeddings. One of the main goals of his research is potential
applications to the Novikov Higher Signature Conjecture and some
other related conjectures.

Asymptotic topology is a relatively new subject which studies
the large scale properties of a space. The
classical topology is a science of a very small scale, since it is based on
the notion of a continuous transformation which is local.
The classical topology has the century long history and now it is substantially
developed in all directions. Its long and painful birth at the
end of 19th and beginning of 20th centuries was inspired and
pushed by the progress in natural sciences and mathematics, in particular
in analysis. By the end of the 20th century in many areas
of mathematics the necessity appeared for a discipline which would be
similar to topology and which describe behavior of the large scale world.
Such a discipline started to hatch in a last decade or so.
This proposal is a further push for rising of such science.